PETRI NETS and TRACE LANGUAGES

This award is being made under the Research Planning Grant option of the Research Opportunities for Women program. Dr. Lando is developing a research program in theoretical computer science with emphasis on Petri Nets and Trace Languages. Petri nets provide simple models of distributed systems, and the theory of traces provides a representation of concurrent processes, analogous to the way that strings of symbols model sequential processes. For certain types of Petri nets, the application of the theory of traces is providing worthwhile results. Dr. Lando will investigate trace theory as applied to Petri nets and as a new area of language theory.